Support for IAU Colloquium on the Teaching of Astronomy

International Astronomical Union Colloquium of Astronomy will be held during July 27-31, 1988, at Williams College in Williamstown, Massachusetts. It will be the first IAU colloquium on teaching ever held. The colloquium will take place immediately prior to the International Astronomical Union's General Assembly in Baltimore, the first time the IAU has met in the United States since 1961. The Colloquium on Teaching will bring together about 100 American/Canadian astronomers with 100 astronomers from all over the world. The benefit to American teachers of astronomy from interaction with their counterparts from all over the world will be extensive. The grant will assist with some participant costs which are above those necessary to attend the General Assembly.